Travel: NSF Student Travel Grant for 2024 ACM Conference on Emerging Networking EXperiments and Technologies

This is a travel grant to support student travel to Co-NEXT 2024, to be held in Los Angeles, California.